Nonlocal Interaction Models from Physics and Materials Science

Nonlocal interaction models are used to describe a wide array of physical phenomena in materials science and mathematical physics with applications in soft matter and quantum mechanics. These models are well-suited for investigating complex pattern formation across scales, from microscopic to macroscopic. This project develops the mathematical analysis of nonlocal models directly related to models of nuclear fission, triblock copolymers, and lipid bilayers. It aims to tackle novel and challenging mathematical problems that arise due to the competition between nonlocal interactions at different scales. This will yield insight into the general phenomenology of nonlocality and ultimately provide predictions of complex pattern formations in these systems and guide the design of new technologies. In particular, the mathematical insights developed here are expected to inform the self-assembly of block copolymers and block copolymer-based nanomaterials, with direct relevance to advanced manufacturing applications. The project provides research training for undergraduate and graduate students, contributing to the development of the next generation of mathematical scientists.

The project has three main mathematical aims: (1) Introduce a new particle model to investigate the dynamics of nuclear fission numerically, and derive precise second-order asymptotics of discrete nonlocal interaction energies as the number of particles tends to infinity; (2) Study the dilute limit of a ternary inhibitory system related to triblock copolymers in the thermodynamic limit, and rigorously identify the ground-states at first-order; and (3) Prove the quantitative version of a recently obtained maximality result for an optimal transport problem related to a model of lipid bilayers. To pursue these goals, techniques varying from nonlinear to geometric analysis, optimization and partial differential equations will be implemented. These techniques are complemented by numerical experimentation and rigorous validated numerical analysis. A unifying goal across all three directions is to characterize the structure of optimizers in a variety of physical and engineering systems of practical interest.